Mechanisms of Spontaneous Mutation

The orthodox view of spontaneous mutations is that they arise continually and at random, without reference to their ultimate utility. However, in Escherichia coli, many of the mutations that convey immediately-expressed phenotypes arise after the application of the very selection that allows for their detection. Indeed, some classes of rare mutational events, such as those that activate cryptic operons, are only observed in stationary-phase cells under selective conditions. The mechanism of this post-selection mutational process is unknown. Bacterial variants (mutants) that are defective in the process, will be isolated. This will be done by mutagenizing bacteria that carry two cryptic operons, one for salicin (bg1o) and one for lactose utilization (ebgo), and screening for variants that cannot mutate spontaneously to Sal+ or to Lac+. The phenotypes of the variants obtained will be extensively characterized. The specific genetic defects will be identified by conventional mapping techniques and cloning. If conditional-lethal variants are obtained, suppressors of this phenotype will be selected for and characterized. Ultimately, this approach should allow the pathway of post-selection mutagenesis to be deduced.